A Mathematical Control Theory for the Partial Differential Equations of Thermal/Structure and Structural Acoustic Interactions

9972349
Avalos

This project entails the mathematical analysis of control problems for
those systems of coupled partial differential equations (PDE's) known to
govern structural acoustic and thermal/structure interactions. In the first
part of our work, we will study the coupled hyperbolic and parabolic--like
PDE's which model structural acoustic systems under the action of
unbounded pointwise observation and control, with a focus here upon
issues of optimization and exact boundary controllability. In a particular
structural acoustic, control design application, pointwise boundary control
is implemented for the purpose of attenuating external noise in an acoustic
chamber. Moreover, the efficacy of the point boundary control is
measured by point observations of the acoustic pressure. Accordingly, the
governing PDE model involves highly unbounded control and observation
operators. Before one can consider the optimal control of the controlled
and observed structural acoustic PDE, wellposedness of the dynamics
under the influence of these point observations and control must first be
established. This effort to establish regularity will require new techniques
of pseudodifferential analysis to establish microlocal PDE estimates that
cannot be obtained globally. Moreover, before optimization of the PDE
system can proceed, there must be an identification and characterization of
a state space which allows pointwise observations of the acoustic pressure.
This effort to properly characterize the state space will also have a heavy
microlocal component. Subsequently, we will consider various quadratic
optimization schemes for the structural acoustic PDE's under such point
control and observation, with a view toward developing a characterizing
Riccati Equation and finite element approximation of the optimal control
laws. The second phase of the project involves a continuation of our
previous studies on controllability and stability properties of a now
classical system of thermoelasticity. In particular, we attempt to extend a
recent result of exact--approximate controllability to the case where the
coefficient of thermal volume expansion is allowed to vary with the
properties of the plate material. In addition, we will study the longstanding
problem of null controllability for the linear system of thermoelasticity.
Both these controllability investigations will employ novel Carleman and
pseudodifferential multipliers and techniques, as opposed to standard
differential multiplier methods. Nonlinear stabilization problems for
systems of thermoelasticity in the absence of rotational inertial will also be
considered.

The motivation for this project is drawn from the fact that the classes of
coupled PDE's to be considered frequently arise in the development and
application of smart materials technology. Loosely speaking, a "smart"
material or structure is that which has a miniaturized control system
embedded within one or more of its components, so as to induce a desired
result or physical state. For instance, this control system might function in
such a way so as to negate unwanted external influences, or to assist the
material in attaining an optimal shape (optimal with respect to some
predetermined design specification). Examples of such smart materials---
these comprising both sensor and actuator---may be found in structural,
structural acoustic, thermal/structure and fluid/structure interaction
systems. The mathematical modeling of these composite structures will
often culminate in the appearance of the aforementioned coupled systems
of PDE's. Moreover, inasmuch as the various components of the control
mechanism are typically affixed to the structure's boundary, or embedded
within its medium, and/or in collocation at specified points of the
structure, the associated system of PDE's which describes the particular
interaction will have a control input term present therein. The principal
intent of this project then is to obtain a better understanding and foresight
concerning the effect of active control on composite materials by
analyzing the behavior of their corresponding governing equations. In
addition, by performing rigorous numerical simulations on these PDE
models, it is our intent to generate approximate control laws that can be
implemented for "real--time" engineering control design.